GeoSoilEnviroCARS: A National Resource for Earth, Planetary, Soil and Environmental Science Research at the Advanced Photon Source

9906456
Rivers

This award provides partial funding support for the operation and maintenance of the GeoSoilEnviroCARS (GSECARS; CARS = Consortium for Advanced Radiation Sources). GSECARS is located at the Advanced Photon Source (APS) in Argonne National Laboratory. The APS is a synchrotron electron/positron storage ring used to generate brilliant X-radiation for materials research. GSECARS operates two X-ray beamlines used primarily for applications in the earth sciences. The research conducted at GSECARS makes use of the capabilities of brilliant, highly collimated, X-ray beams to advance knowledge of the composition, structure, and properties of earth materials. Specific techniques employed by GSECARS users include: (1) high-pressure/temperature crystallography of samples in a diamond anvil cell or in a multi-anvil large volume press; (2) powder, single crystal, and interface diffraction techniques; (3) X-ray absorption fine structure analysis (XAFS); (4) X-ray fluorescence microprobe analysis, and; (5) X-ray computer assisted microtomography.
***